Collaborative Research: Field Investigation of Se Oxyanion reduction and Se Sources in Wetlands: Application of Se Isotopes

0003691
Bullen

This project will apply selenium (Se) stable isotope ratios as a new tool
for understanding the transport and chemical transformations of Se in
wetlands. Se contamination poses a threat to wildlife in many wetland
areas of the western United States, in fly-ash disposal areas, and in other
settings worldwide. The complex chemistry of Se determines the element's
mobility and bioavailability, and efforts to understand its long-term
cycling and transport in wetlands depend on accurate understanding of
chemical transformations there.
Previous work by this group suggests that Se isotope ratio measurements can
be used as indicators of reduction reactions, which transform Se oxyanions
into forms that are less mobile and less bioavailable. The present study
will address critical questions arising from that work by performing the
first detailed Se isotope field study, at a Se-contaminated wetland at
Benton Lake National Wildlife Refuge, Montana. The primary objectives are
to determine Se reduction rates using this new technique and constrain the
relative importance of reduction by bacteria versus assimilation by plants
and algae. The work will involve detailed measurements of Se
concentrations, Se isotope ratios, and related geochemical variables in
surface water, sediment pore waters, sediment components, and microcosm
experiments. Sampling will be timed according to seasonal variations in
water management and biogeochemistry. If possible, Se from the various
sources will be traced through the system via their isotopic "signatures".
The study is designed as a Ph.D. project for a graduate student, who will
be trained in environmental geochemistry, hydrogeology, isotope
geochemistry and geomicrobiology